Providing and Integrating Educational Resources for Faculty Teaching Artificial Intelligence

9353928 Ingargiola The goal of this faculty enhancement workshop is to provide instructors in two and four year colleges an exposure to the resources available to teach the undergraduate introductory course in Artificial Intelligence. The workshop will run for six days during June 1994 followed by two one-day "reflection" workshops in November 1994 and April 1995. The major topics addressed are (1) What resources are available and how they can be obtained, (2) How to integrate classroom lectures with laboratory sessions and assignments using available laboratory materials and network facilities, (3) How to adapt or extend the available pedagogic material, (4) How to improve learning and cooperation between instructors and their students, (5) How to establish and maintain cooperative arrangements between instructors at different institutions, and (6) Ideas on how to assess the effectiveness of various pedagogic methods for using the resources. A Teaching Portfolio will be developed that includes material distributed by the instructors, materials created by the participants for their own courses, and suggestions by participants for further exploration. ***